ITR: Virtual Environment Technology and Eyewitness Identification

This project examines the use of immersive virtual environment technology for eyewitness identification of criminal suspects. This technology allows individuals to enter and move about three-dimensional digital "worlds" in real-time, observing and interacting with the environment and virtual others within it. The rapid development of immersive virtual environment technology and increased sophistication in three-dimensional digital imaging of people promises a new age for determining accuracy of eyewitness identification of criminal suspects. This is important societally as the general accuracy of eyewitness identification of criminal suspects using older technologies (e.g., police lineups, mug shots) has been questioned in the research literature as well as in the judicial system.

The scientific goals of the project are threefold. First, the investigators will determine the validity of using digital representations of humans within immersive virtual environments for person recognition. Second, they will determine differences between traditional and immersive virtual police lineups in terms of eyewitness identification accuracy focusing on the increased contextual realism described above. Finally, the investigators will use immersive virtual environment technology to develop quantitative indexes of fairness of such lineups based on the similarity of suspects to foils.

Immersive virtual environment technology allows easier recreation of the same environmental conditions under which an eyewitness viewed criminal activity involving suspects. Replicating such conditions is not easily accomplished using older technologies. Hence, using immersive virtual environment technology, witnesses can be asked to identify suspects and foils at the same distance, viewing angle, lighting, weather (e.g., rain, fog) as was the case during their observation of the criminal activity. Furthermore, this technology makes it easier to match foils to suspects in terms of organismic variables (e.g., height, weight, hair style, coloring), clothing, and movements thereby eliminating potential sources of bias. This technology also allows the quantitative assessment of how well suspects and foils are matched as opposed to pure subjective assessment using older technologies.